Computational Modeling of Transport Phenomena and Electro- mechanical Dynamics in Microscales

Phase I 1) Transport Phenomena in Microchannels - Development of Spectral Element Method for the coupled Navier-Stokes and Energy Equation with slip boundary conditions for transition flows, and Direct Simulation Monte Carlo Method for low Knudsen number flows in microchannels will be performed. Non-rectangular geometries, such as trapezoidal cross sections, will be investigated. 2) Electrostatic Force Calculations for Micromotors - Perturbation Method will be extended to solve three-dimensional electrostatic force field calculations. The effects of resistivity in the materials will also be included. The calculations will be performed for various micromotor geometries to optimize device designs. 3) Squeeze Film Damping in Microdynamical Devices - Reynold's Equation will be solved to understand fluid dynamics of squeeze film between microplates at various gap distances. The results will be integrated with the results of (2) and compared to our unique experimental data obtained using electrostatic levitation microplates. The effective damping characteristics will be determined. Phase II 1) Transport Phenomena in Microchannels - Results from (I.I) will be extended to include the imperfections of channel geometries, which are unavoidable in micromachining. Hybrid Spectral/Finite Difference Discretization Method will be used. The results of (I.I) and this task will be summarized to provide a comprehensive data base for microchannel flows. 2) Electrostatic Force Calculations for Micromotors - The results of (1.3) will be extended to perform electrostatic force calculations on the Macintosh II family of computers. The code will be extended such that electrostatic force calculations will be performed on drawings imported from CAD programs. 3) Hydrodynamic Drag and Lift in Micromotors and Other Microstructures - Spectral Element Method will be applied to study the detailed flow field of micromotors with uniform cross section rotors. The results will be combined with the results of (I.2) and (II.2) and compared to the recently reported stroboscopic experimental work measuring the transient dynamics of a micromotor. Phase III 1) Hydrodynamic Bearings for Microdynamical Devices - The comprehensive results of (I.1-3) and (II.1-3) will be applied to investigate the methods of reducing drag and increasing lift of microdynamical devices. The use of hydrodynamic forces to center the rotor of micromotors under the applied electrostatic field will also be investigated. 2) Reduced Order Model Development - The comprehensive results of (I.1-3) and (II.1-3) will be carefully tabulated to develop a scientific data base for microdynamical devices and systems. Simplified sets of equations will be developed for both transport phenomena and electromechanical dynamics, and their relative accuracy will be determined by comparing the results to those from (I.1-3) and (II.1-3). The reduced order models will be useful for developing means to conduct design optimization studies before hardware fabrication, as well as closed loop control strategies for microdynamical devices and systems.